Support for the Drosophila Species Collection

{\rtf1\ansi {\fonttbl{\f0\fnil;}{\f1\fswiss Arial;}{\f2\fswiss Arial;}{\f3\fswiss Arial;}}\paperh15840\paperw12240\margt1440\margl2016\margr1440\margb720\sbknone \plain\cols1 \par \sect \cols1 \f3 \fs22 \qj 9724112 Yoon\par \pard \par \ql This award provides renewed support of the National Drosophila Species Resource Center (NDSRC), a collection of 250 species of the fruit fly Drosophila. The collection, which began operation at the University of Texas (Austin) over 50 years ago, includes over 1405 living strains that are used for basic studies in genetics, developmental and population biology, ecology and evolution. The number of species in the collection has increased by about 10% since 1990. Each year, the NDSRC provides approximately 1000 samples of its collection to scientists throughout the world at modest charge. Operation of the collection is guided by the principal investigator, Dr. Jong S. Yoon, and an extemal advisory committee first established by the American Society of Naturalists in 1975.\par \pard \par \ql \fi4680 ~31,,@=.n.{\'ae}u.n.\par \pard \sect \pard \cols1 \par }